RUI: Depositional Features and Stratigraphic Sections in Sierran Plutons -- Implications for the Emplacement and Crystallization of Granitic Magma

9902915
Wiebe
The thesis of this project is that common magmatic structures in granitic
plutons of the Sierra Nevada Batholith, California, may have formed by
sequential deposition from an active magma chamber onto a chamber floor.
Research will focus on two plutons (the Crystal Range suite and the Jackass
Lakes pluton) where depositional packages provide opportunities to examine
temporal sequences of processes that are fundamental to understanding the
formation and evolution of plutons (and magma chambers) - magma
emplacement, crystallization, replenishment, hybridization, deposition, and
fractionation. The goal of this research is to establish sequences of
events from stratigraphic sections in portions of both intrusions, using
detailed studies of outcrop-scale field relations, petrography, mineral
chemistry, and whole-rock geochemical variation. These relations can be
used to characterize and quantify processes of hybridization due to
interactions between felsic and mafic magmas, and to quantify the cumulate
character of the interlayered mafic, hybrid and granitoid rocks. This
research has important implications for the emplacement of granitic plutons.